SGER: Relative Importance of Nonlinearities for Langmuir Turbulence Excited in Ionospheric Heating Experiments

Investigators provide applicable theoretical basis for nonlinear wave-wave couplings in ionospheric HF heating, and apply the theory to experimental observations by Sulzer and Fejer in 1994. They are deriving a set of general coupled mode equations for studying secondary parametric instabilities, including nonlinearities in the derivations. Specifically, they: (1) derive coupled mode equations, (2) compare different cases among nonlinear coupling terms, (3) perform case studies exemplifying the importance of each nonlinearity, and a systemic study of secondary parametric instabilities, (4) determine the spectral distribution of Langmuir waves in a specific frequency range, (5) study multiple scattering of cascading Langmuir waves by parametrically excited ion acoustic waves into forty-five degree off-resonance plasma lines, and (6) investigate possible direct parametric excitation of frequency upshifted HFPLs together with lower hybrid decay mode by parallel propagating Langmuir waves.